Patterning of the Embryonic Germ Layers

A fundamental problem in developmental biology concerns the mechanism by which
the maternal program regulates early embryogenesis. Recent studies have
demonstrated that several maternal factors such as Tcf-3, VegT, and Xenopus
nuclear factor 7 (xnf7), a gene that we are studying, play important roles in
the specification, patterning, and differentiation of the embryonic germ
layers. The effect of these maternal factors is evident at the late
blastula-early gastrula stage by the region specific activation of zygotic gene
expression such that the embryo is divided into a variety of subdomains. The
most dorsal region forms the Spemann organizer which expresses a large variety
of transcription and secreted factors. These are expressed in overlapping
domains that divide the organizer into the head and trunk organizer regions. In
addition specific groups of genes are expressed in the ventral region. One of
the key problems is to understand the mechanism by which the maternal genetic
program regulates the pattern of expression of both the organizer and ventral
specific genes. Based on our recent data from this laboratory we hypothesize
that xnf7 is one of several important maternal factors responsible for the
global patterning of the embryo into dorsal/ventral domains and for patterning
of the organizer in the dorsal most aspect. Our goal during this next grant
period is to further define the precise mechanisms and molecular pathway through
which xnf7 functions and to use xnf7 as a tool to gain insights into the general
mechanisms of embryonic patterning and the specifics of how the organizer forms
and is patterned. This will be accomplished by identifying potential xnf7 target
genes; identifying nuclear partners of xnf7; and determining the role of xnf7
in patterning endoderm and ectoderm.